RUI: High Precision Variational Calculations on the Li I Isoelectronic Series (Physics)

The purpose is to carry out high precision calculations on the Li isoelectronic series for Z < 10. A number of quantities will be calculated including the energy levels, mass shift, transition isotope shift, hyperfine coupling constant, electron density at the nucleus and relativistic contributions. In particular, a high precision lower bound for the nonrelativistic ground state energy of the Li atom will be computed. This should resolve an issue in the literature concerning the precise location of the ground state energy of Li to a 1 microhartree level of accuracy (.00003 eV). The lower bound will also provide valuable information on the rate of convergence of the variational approach used. Finally, an indirect determination of the Lamb shifts for particular states of the Li I series will be carried out. Lamb shifts for selected spectral transitions will also be evaluated.